Massive Data Streams: Algorithms and Complexity

Title: "Massive Data Streams: Algorithms and Complexity"

Investigators: Joan Feigenbaum and Sampath Kannan

Abstract:
Massive data sets are increasingly important in many applications,
including observational sciences, product marketing, and monitoring and
operations of large systems. In network operations, raw data typically arrive
in streams, and decisions must be made by algorithms that make one pass
over each stream, throw much of the raw data away, and produce ``synopses''
or ``sketches'' for further processing. Moreover, network-generated massive
data sets are often distributed: Several different, physically separated
network elements may receive or generate data streams that, together, comprise
one logical data set. The enormous scale, distributed nature, and one-pass
processing requirement on the data sets of interest must be addressed with
new algorithmic techniques.
Two programming paradigms for massive data sets are "sampling" and
"streaming." Rather than take time even to read a massive data
set, a sampling algorithm extracts a small random sample and computes
on it. By contrast, a streaming algorithm takes time to read all the input,
but little more time and little total space. Input to a streaming algorithm
is a sequence of items; the streaming algorithm is given the items in order,
lacks space to record more than a small amount of the input, and is required
to perform its per-item processing quickly in order to keep up with
the unbuffered input. The investigators continue the study of
fundamental algorithms for massive data streams. Specific problems of
interest include but are not limited to the complexity of proving properties
of data streams, the construction of one-pass testers of properties of
massive graphs, and the streaming space complexity of clustering.